Development of Laser Feedback Microscopy (LFM): High- Resolution Optical Imaging for Biological Science and Technology

Laser feedback microscopy (LFM), a new type of scanning confocal optical microscopy, originated in this laboratory. Presently, we have produced a LFM which measures surface topography of low-reflectance samples with a z-resolution down to a nanometer (10-9 meter). LFM, a far-field optical microscopic technique, allows the examination of biological samples under physiological conditions; there is no requirement for transfer to a high-vacuum environment or the imposition of other special preparative conditions, e.g., staining or shadowing. We are requesting funds to further develop and extend the construction of prototype instruments and their application to LFM imaging of biological and other materials. The major goal presented in this proposal is the attainment of LFM x,y-resolution in the 10-50nm range, rivaling that of electron microscopy and approaching the resolution of surface-probe techniques such as scanning- tunneling and atomic-force microscopy. In addition, LFM has the capability of measuring microscopically the optical properties of materials; we will utilize this unique feature to provide new methods of "optical contrast" resulting in unconventional microscope images conveying important information about biological preparations. Finally, a fully- instrumented, computer-console controlled LFM with the highest possible resolution will be built for general use in the biological sciences.